SBIR Phase I: Secure blockchain communication for federal benefit assessments during COVID-19

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to simplify how Americans in need of assistance during COVID-19 obtain government benefits in a secure, safe transaction. The platform will use new blockchain technologies for security. The platform will streamline eligibility screening, facilitate enrollment and expedite review timelines. Furthermore, it will enable rapid access to disadvantaged populations.

This Small Business Innovation Research (SBIR) Phase I project proposes to develop an end-to-end platform using distributed ledger technology (DLT) to facilitate transactions with the federal government in a secure fashion. Subsequently, the platform will consolidate redundancies into a uniform system. The proposed work will identify technical requirements and implement DLT.